Relativistic Quantum Mechanics of Few Particle Systems

The proposed research will continue an investigation of Poincare-invariant light-front models. Applications will include the nucleon-nucleon problem, including various pion and rho-meson exchanges, as well as excitation of the Delta resonance, and a calculation of the electromagnetic properties of the deuteron. Earlier work will be continued on the study of light-front dynamics and manifestly covariant formulations of strong-interaction dynamics. ***